An Ultracentrifuge and a Spectrophotometer for an Under- graduate Molecular Biology Laboratory.

As many undergraduates are moving away from an interest in medicine and descriptive biology into the research and technical areas of Molecular Biology, it becomes increasingly important to expose them to basic methods of ultracentrifugation and spectrophotometric analysis. The Department is changing its curriculum to offer an emphasis in Microbiology and Molecular Biology to meet this change in student interest. The new equipment (ultracentrifuge and UV/Vis/spectrophotometer) purchased through this award is being used for experiments in six different laboratories as well as in independent student research projects. This broadly based exposure is ensuring that the students have multiple chances to use and become familiar with this instrumentation and its uses.